Research Experiences for Undergraduates Site at Trinity University

Dr. William E. Kurtin and other members of the Chemistry Department of Trinity University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the partnership formed with six local universities and community colleges to insure recruitment of underrepresented minority students.